Numerical Linear Algebra Tools for the Analysis of Complex Networks

This project concerns the development, analysis and application
of numerical linear algebra tools for the quantitative study of
important properties of large-scale complex networks, such as
centrality, betweenness and communicability measures. Specifically,
the investigator and his collaborators study efficient algorithms
for the fast approximation of the entries of matrix functions
such as the exponential and the resolvent of adjacency matrices
and graph Laplacians, as well as their traces. While these
matrices are quite sparse, in the case of complex networks
they behave very differently from the matrices associated with
regular lattices (grids), such as those arising from discretizations
of partial differential equations. Hence, there is a need to
develop new methods, both computational and analytical, to deal
with these very large-scale problems. The investigator brings
together expertise in classical numerical analysis and approximation
theory, as well as methods from spectral graph theory and modern
network analysis, to enable efficient computations involving large
graphs. Potential applications include the analysis of social networks,
the study of biological and neurological networks, applications in physics
and operations research, and so forth.

Over the last decade or so, the emerging field of network science
has had a profound influence on such different domains as physics,
chemistry, biology, operations research, engineering and the social
sciences. A deep understanding of network structure and dynamics is
of great importance also for Homeland Security and for many businesses,
including financial institutions and e-commerce. Detailed, quantitative
models of massive and complex networks are now pervasive owing to the unprecedented availability of data on just about any conceivable topic. Extracting useful information from these massive data sets and networks requires fast and accurate algorithms. Such algorithms can be used, for instance, to rank the `importance' of elements of a network, i.e., to determine which nodes are essential for the proper functioning of a network. They are also used to determine bottlenecks in a network, and critical connections in a graph. The importance of these notions for crucial parts of the infrastructure of a country, such as power or transportation grids,
cannot be overstated. The investigator and his collaborators develop fast computer techniques to solve these and related problems.